RI: Small: Adapting a Natural Logic Reasoning Platform to the Task of Entailment Inference

Current AI systems still lack the knowledge and reasoning
abilities needed to handle the semantic subtleties of language
and the thematic breadth of human discourse and thinking.
This project is developing a basic repertoire of lexical and
other general knowledge for use in a powerful inference engine
(EPILOG) designed expressly to support unrestricted language
understanding and reasoning.

The methods being employed exploit the insights into language-based
inference gained in recent years in the area of "natural Logic",
which makes systematic use of word-level and structural entailment
properties of language. These are easily modeled in EPILOG, which
uses a language-like meaning representation (Episodic Logic). Some
very general semantic properties are being manually encoded, and in
addition, large numbers of knowledge items are being extracted
computationally from lexical resources such as WordNet and VerbNet,
and from word similarity or paraphrase clusters derived from large
text corpora.

The expected result is a knowledge base of fundamental lexical and
other commonsense knowledge that will allow demonstration of many
previously infeasible language-based inferences, including both
forward and backward reasoning and many multi-premise entailment
inferences in existing test suites. This will significantly
advance the state of the art in basic language understanding and
in mechanizing "obvious inferences", with potential applications
to intelligent dialogue-based agents (for question answering,
tutoring, personal assistance, etc.), and to knowledge bootstrapping
through machine reading. The results will be disseminated both
through papers at conferences and in journals, and through web sites
making available EPILOG and the newly developed knowledge bases.